Wyoming King Air as a National Facility

Observations of the atmosphere through remote sensing and in-situ measurement are necessary for advancement in atmospheric science. Instrumented research aircraft are invaluable in providing these observations over the last four decades. The need for such aircraft will be great over the next few years for research covering a broad range of research problems including atmospheric chemistry, mesoscale meteorology and cloud physics. These areas of atmospheric science are high priority research areas for the next decade. This award makes available to the entire atmospheric sciences community the University of Wyoming King Air research aircraft. The Wyoming King Air will be treated as all other atmospheric sciences community facilities with allocation being made by an NSF Facility Advisory Council based on a community peer-review process. The University of Wyoming personnel are experienced in airborne research and the King Air is a state-of-the-technology research platform. During a previous three year award, the University demonstrated exceptional performance in servicing the community needs. This award also helps maintain an active program in airborne research at the University of Wyoming and extend this educational benefit to other institutions through emerging agreements with other universities. The University of Wyoming produced many excellent airborne research scientists over the last three years.